Developmental Regulation of 5s RNA Gene Expression in Xenopus Laevis

The objective of this research project is to investigate the molecular mechanisms for the differential expression of the 5S RNA gene families of Xenopus laevis during early development. Transcription of the abundant oocyte-type 5S RNA gene is selectively switched off as the frog eggs develop into tadpoles. In contrast, the less abundant somatic-type 5S RNA gene remain active. Dr. Peck's development of an in vitro transcription system which mimics the differential expression of the two types of genes will be exceedingly useful for biochemical approaches to this phenomenon. Recently Dr. Peck has succeeded in fractionating this transcription extract into components which further accentuate the selective transcription of the two types of genes. Using a biochemical approach, he plans to purify the component in the fractionated extract which is responsible for the selective inhibition of the oocyte-type 5S RNA genes. In addition, he will analyze the proteins associated with the transcriptionally active versus inactive 5S RNA genes with the hope of correlating structure with function. Several facets of this project revolve around exploring the effects of the flanking sequences on the control of the two gene families. The proposed projects include searching for proteins which interact with the flanking sequences and the construction of clones containing oocyte-specific 5S RNA genes and somatic-type spacers. Finally, he plans to investigate the binding of TFIIIA to the 5S RNA genes in developing embryos using the technique of in vivo footprinting. The knowledge of when during development TFIIIA is complexed with the oocyte-type 5S RNA genes will place severe restrictions on the possible mechanisms responsible for the selective inhibition of transcription of this gene family. %%% The long-range objective of the proposed research is to explore the molecular basis for the selective expression of the 5S RNA gene families of Xenopus laevis during embryonic development. Specifically, Dr. Peck wants to learn how a particular class of genes, the oocyte family of 5S RNA genes, is selectively repressed as the fertilized frog egg develops into a tadpole. An understanding of the control of gene expression is of crucial importance for learning how genetic information is transformed into the functioning organism. As an organism develops and groups of cells differentiate to perform specialized functions, whole families of genes within these cells must be coordinately controlled. Understanding how the families of 5S RNA genes are regulated during development will contribute to an understanding of the mechanisms which are used to regulate the families of genes which control the developmental fate of differentiating cells. This is a central problem in developmental biology and may provide insights into related problems such as the generation of developmental abnormalities during human embryological development.